Support for the U.S. National Office for Earth System History (ESH)

This award is for support of the American Geophysical Union (AGU) to provide the leadership and management structure for the coordination of U.S. research activities in connection with the Earth System History (ESH) Project of the United States Global Change Research Program (USGCRP). The ESH Secretariat at AGU will provide support services for the ESH Steering Committee and a point of interaction and contact with the international effort in Past Global Changes (PAGES) of the International Geosphere-Biosphere Programme (IGBP). These efforts will include supporting activities of the ESH Steering Committee and other activities designed to generate paleoscience community input to ESH Project priorities and objectives. Workshops, planning meetings and publications will insure that the goals of the project are met and that implementation of the project is carried out in an effective manner.